Mathematical Sciences: Weighted Norm Inequalities and Differential Equations

8902952 Wheeden Central to the investigations to be carried out is the development of integral inequalities known as weighted norm inequalities. The inequalities, which compare the weighted norm of a given function with that of its image under some transform (using possibly a different weight) are fundamental in the analysis of differential equations. Solutions of the equations are expressed in terms of integral transforms, often involving singular kernels. If one can establish basic, weighted inequalities relative to the transforms, it is then possible to show that solutions can be found within given classes of functions. The analysis involves fractional integrals, Sobolev and Poincare inequalities, interpolation inequalities, Poisson integrals and Fourier transforms. Degenerate elliptic and parabolic equations, including vector fields other than the gradient fields will be studied. In addition, work will be done seeking conditions for the global existence of positive solutions for a class of semilinear degenerate elliptic equations. Work is also planned in determining the extent to which classical inequalities can be carried over to homogeneous spaces. Emphasis will be placed on the question of whether the Sobolev and Poincare inequalities for first order vector fields (other than the ordinary gradient) can be carried over to these spaces.